Higher Order Photon-Electron Interactions in The External Field

The primary objective of this U.S. Yugoslav cooperative research project between Krunoslav Pisk of the Rudjer Boskovic Institute's Department of Physics in Zagreb and Richard H. Pratt of the University of Pittsburgh's Department of Physics is to investigate higher order photon-electron interaction in external electromagnetic fields. The two groups interests and abilities are well matched and through this joint collaboration a new method for describing photon-electron interactions will be developed. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State and no NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Funds include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.